The Prototype Web-based Interactive Ground-water Tutor

The Interactive Ground-Water Tutorial Prototype Web Site

This project constructs a prototype web-based ground-water tutorial, a "hands-on" tool for teaching secondary Earth and Space Science and Environmental Science students concepts related to ground-water flow and to the human impacts on surface- and ground-water systems. Most of the work performed in this two-year, proof-of-principle project focuses on developing the interface that will enable the student to interact with the modules on the prototype web site. The project encourages inquiry instruction by incorporating role-play exercises and mathematical simulations of ground-water flow and contaminant transport in a stream-aquifer system to solve environmental problems. Role-play exercises could potentially include using simulation results to help prevent: (1) a contaminant plume from reaching the stream and (2) contamination of an aquifer by a spill that has been dumped into a nearby stream where the aquifer is used for public water supply. A guidance module will provide: (1) a framework to help guide role-play actions and (2) an orientation for the student and (3) a means to update the student about the simulated situation during the role-play. The project is a collaboration between the Kansas Geological Survey, the University of Kansas Upward Bound Math Science Center, Pathfinder Science, and Kansas StreamLink. Kansas City Kansas Community College, the Lawrence, Kansas USD #497 will participate in field-testin